Assessing Academic Research Contributions to Industry: Industrial and Education Impacts

9550657 The objectives of the research are to examine: (1) the nature of U.S. academic scientific and engineering research contributions to industry; (2) the extent to which the research has contributed to industrial developments: and (3) the educational relevance and value of the accompanying university-industry research relationships. The project is designed to provide a better understanding of the nature of academic research and its relationship to industrial innovations. Sampling designs used to select interview participants serve to maximize variability so that useful generalizations of patterns can be derived, supplementing data obtained form mail surveys. Dissemination of project results through publications, mailings, and presentations will provide timely information on the nature of and factors shaping the contributions to industry of academic research in science and engineering and their educational impacts. Involvement of students in the project and dissemination in courses will contribute directly to education.